Supramolecular Chain-Growth and Chain-Transfer using Heterocomplementary Paracyclophanes

Polymers well known from biology, like DNA and peptides, are remarkable in part because of their precise sequences, shapes, and sizes. Replicating their features in wholly synthetic materials for applications in advanced manufacturing requires new bottom-up designs. This grant will support the development of organic molecular building blocks that are capable of precisely and faithfully forming larger structures through aggregation (i.e., self-assembly), where the resultant aggregates are reminiscent of biopolymers. The developed building blocks will also allow for the unprecedented control of aggregate dynamics, size, shape, polarity, and functions. With respect to education and training, this grant will (1) expose graduate and undergraduate students to synthetic and physical organic chemistry, spectroscopy, computation, and polymer characterization; (2) introduce aspects of the science to the community through outreach activities in partnership with the UF ACS POLY/PMSE student chapter and the UF Chemistry Club, and; (3) allow the hosting of high school student interns annually whose interests are in critical extracurricular (e.g., communications, marketing) aspects of the academic mission.

Funding for this project will bring three-dimensional supramolecular polymer monomers, paracyclophanes, to modern living polymerization regimes through the introduction of components that have prescribed (through design and synthesis) functional roles: as initiators, chain growers, chain-transfer agents, or end-cappers. The work will first introduce novel deck-differentiated paracyclophanes that encode the instructions required for their hierarchical role in supramolecular polymerization. Next, 'artificial infection' of assemblies by a heterocomplementary initiator or end-capper will produce cooperative living supramolecular polymers readily distinguished by size difference. The work will culminate with the usage of chemically distinct initiators and end-cappers together in ternary ensembles as noncovalent 'chain-transfer agents', allowing the thermodynamics, kinetics, and degree of supramolecular polymerization to be controlled according to modern covalent polymer recipes.